ANIMALS EAT Traveling Exhibition

The Brooklyn Children's Museum (BCM) is requesting $242,753 from the National Science Foundation to introduce a traveling version of the Museum's award-winning, interactive science exhibit, ANIMALS EAT: DIFFERENT FEASTS FOR DIFFERENT BEASTS. ANIMALS EAT was designed to assist children in the formation of their concept of a living thing. The exhibition specifically focuses on familiar animals, and on eating in order to illustrate this complex idea. Throughout the exhibit, where appropriate, human parallels demonstrate the interrelatedness of all living things. The touring exhibit will incorporate the in-depth research, development and extensive evaluation that went into the installation at BCM. It will encompass approximately 2,000 square feet and will travel to at least ten locations over a perior of two-and-one-half years, offering hundreds of thousands of children and families a unique and exciting way to learn important natural science concepts. As part of the touring package, the Museum will also circulate Evi"Dents," a science curriculum kit developed for grades 3-5. Using activity books, natural science specimens and investigation tools, Evi"Dents" provides an interactive seven-week study of teeth for teachers and students that develops students' scientific and research skills. Through loans to local schools at the tour sites, Evi"Dents" will complement and extend the educational potential of the exhibition.